Travel Grant for North American Power Symposium 2011 to be held in Boston, MA August 4-6, 2011

The 43rd North American Power Symposium (NAPS) conference will take place at Northeastern University at Boston, MA in August 2011. It is the objective of this proposal to request support for the travel expenses for students travelling to the conference from the US. Matching funds will be sought from power system utilities, manufacturers and the IEEE Power & Energy Society (PES).